Mathematical Sciences: Likelihood, Minimum Distance, and Mixtures of Distributions

Many real-life situations can be modelled by a mixture model. The investigator will derive robust estimates of parameters of mixture models which have high efficiency. The investigation will focus on minimum distance estimation methods. Theory and methods for the development of semiparametric mixture models will also be developed.